Women in Math/Computer Science Scholars Program

Wheeling Jesuit University has created the Women in Math/ Computer Science Scholarship Program (WIM/ CS) to encourage women in the Appalachian region to continue their studies at the baccalaureate level. This program provides ten scholarships per year to women graduates of community or technical colleges who hold the A. S. degree in math or computer science to complete the bachelor's degree at Wheeling Jesuit. Taking advantage of its quality programs, its supportive faculty, and the presence of three technology centers on its campus, Wheeling Jesuit provides WIM/ CS scholars with a strong academic program and technology- related internship opportunities on its campus. The scholarships open new opportunities for women in math and computer science and also offer new talent to technology- related businesses and public school classrooms in the region.